Project TLC (Technology Learning Community)

This project is providing assistance to technology students who are placed into remedial courses in math and English. It is recruiting high school students to technology academic programs and creating new mechanisms for retaining those students. Central Connecticut State University, Fairfield University School of Engineering and the University of Connecticut (2 colleges) are assisting in the project and take part in 2+2+2 programs. The South Carolina ATE Center is assisting with curriculum development.

Project activities include:
1. Improving the academic readiness of students entering engineering technology programs (primarily with a summer institute);
2. Creating a learning community model for application in community college engineering technology programs, including on site and online mentors;
3. Developing and testing paired algebra and technology interdisciplinary courses, one in mathematics and one an introduction to technology;
4. Developing a project-based interdisciplinary capstone course that includes all of the engineering technology programs; and
5. Raising student, faculty and counselor awareness of educational and career opportunities in technology fields, particularly for members of under-represented groups.